Computer Aided Design for Casting and Solidification Technology (CADCAST)

The overall goal of this proposal is the development of computer aided design and control methodology for the metal casting process. This proposal continues previous research which made progress towards this overall goal. The specific objectives of the research in this proposal are to integrate solid modeling, casting solidification simulation and computer aided manufacturing software into a total system, to generate thermal property data for use in the casting solidification simulation software, to investigate high efficiency computational techniques, and to investigate heat flux control during solidification by means of heat pipe devices. Analytical and experimental methods will be employed. The results of the proposed research should provide useful methodology and software for an important U.S. industry, i.e., the foundry industry, and should contribute to improved efficiency and quality in castings manufacturing. The work complements joint research to be conducted at another university (University of Michigan).